Human Frontier Science Program

Cuenod 9320139 This award will support the 1993 activities of the Human Frontier Science Program (HFSP), an international, non-governmental organization located in Strasbourg, France and dedicated to supporting international collaborative basic research and long-term (two-year) post-doctoral fellowships in the elucidation of brain functions and molecular biology. The HFSP was originally proposed by the Government of Japan in 1987 at the Venice Economic Summit of the leaders of the major Western countries. The participating countries include Canada, France, Germany, Italy, Japan, Switzerland, the United Kingdom, the United States, and the European Community. In 1993 the HFSP awarded 42 research grants and 152 two-year, post-doctoral fellowships. Sixteen grants and fifteen post-doctoral fellowships were awarded to American researchers. In addition, 95 fellowships were awarded to foreign post-docs who expressed the intention to conduct their research in the United States. The U.S. contribution of $3.5 million includes funds provided by the National Science Foundation, the National Institutes of Health, the Department of Energy, and the National Aeronautics and Space Administration.